RUI: Hadronic Structure from Spin Observables in pQCD

The nucleus of an atom is made up of protons and neutrons, which are a part of a broader category of particles called hadrons. However, these hadrons are composed of other particles, namely, quarks and gluons (collectively called partons) that are the elementary pieces of visible matter in our universe. The partons form a dynamical system inside of hadrons that is governed by the strong nuclear force. A goal of nuclear physics research is to understand this internal structure through the interactions of these partons. In particular, the analysis of high-energy collisions sensitive to an intrinsic property, called spin, of hadrons and/or partons is especially useful. These observables allow the exploration of the 3-dimensional motion of partons inside of hadrons and how the proton's spin arises from its constituent partons. This research gives insight into these aspects of hadronic structure, including applications of artificial intelligence and machine learning (AI/ML), as well as supports the science of the future Electron-Ion Collider to be built in the United States. Undergraduate students are included in substantive parts of the project to foster the interests of young scientists in this subfield of nuclear physics and train them for future careers in research.

This research project furthers our knowledge of observables sensitive to parton intrinsic transverse motion and correlations, which allow for a 3-dimensional imaging of hadrons in momentum space, as well as the origin of the proton's spin. This includes performing Bayesian Monte Carlo global analyses of data from various experiments involving unpolarized or transversely polarized hadrons. An emphasis is on the implementation of artificial intelligence and machine learning (AI/ML) techniques for rigorous uncertainty quantification. Furthermore, the project connects transverse spin physics to near-side energy-energy correlators (EECs), which give insight on the transition from asymptotically free partons to bound states of free hadrons (confinement), by developing a theoretical framework for novel near-side EEC-type azimuthal-dependent observables with dihadron final states. Next-to-leading order calculations of transverse-spin dependent dihadron reactions are performed and used in an extraction of the transversity parton distribution function. Lastly, a robust phenomenological framework is established for analyzing the orbital angular momentum carried by quarks and gluons at small momentum fractions. All of this research supports the science of the future Electron-Ion Collider to be built in the United States.